Control of Nonlinear Systems with Bounded and Switching Controls

This research considers the analysis and control of a class of nonlinear systems with bounded and switching control functions. Such systems have application to a number of areas such as power systems, spacecraft dynamics and switched electrical networks. Problems to be studied include controllability, attainability and optimal control problems where the control appears linearly in the cost for bounded control functions and minimum switch control problems for bang-bang control systems. A systematic investigation of these problems for linear-analytic two dimensional systems and bilinear systems in higher dimensions will be investigated.